Doctoral Dissertation: Soil Organic Carbon Following Deforestation in a Spatially Variable Tropical Landscape

99-72569
Schlesinger / Powers

DDIG: Soil organic carbon following deforestation in a spatially variable tropical landscape

Recent studies have suggested that the direction, magnitude, and rate of change in soil organic carbon pools following deforestation in the tropics are dependent upon initial soil conditions and site factors. However, most global or continental-scale assessments of the flux of CO2 due to soil organic carbon oxidation with land-use change assume an average rate of soil organic carbon decay. To assess the role of geographic variation in mediating soil carbon dynamics following forest clearing, the PIs will quantify the relationship between changes in carbon pools and site factors such as soil age and texture, climate, site productivity, land-use history, and initial conditions for a well-studied landscape in Costa Rica. These studies will provide insights into the processes influencing soil carbon dynamics following land-use change, the importance of geographic variability to large-scale carbon inventories, and improved methods for incorporating fine-scale information into large-scale assessments.